Digital Imaging Across the Curriculum

Our project is an effort by a multidisciplinary team of engineering faculty members at Rowan University to integrate digital imaging technology (DIT) into their undergraduate engineering curriculum. It builds upon the experience and interest of faculty to promote new topics and innovative methods of teaching. Our work is an effort to provide students with the skills directly relevant to the evolving needs of the industry and the marketplace. Our project involves the development of digital imaging curriculum and focuses on the creation of a leading edge digital imaging laboratory/studio to facilitate the use of nontraditional learning approaches that encourage interactive learning, team building, and creative problem solving among students and instructors. There are nine modules adapted, implemented and used to introduce students to the multidisciplinary engineering principles and use of DIT. Though our dissemination efforts we will encourage other schools to adopt our curriculum and modules to enhance their undergraduate curriculum and to promote engineering education outreach opportunities.